Macroscopic Approximations to Networks with Applications to Performance Analysis

The investigation and application of techniques for obtaining macroscopic approximations for communication networks is studied. These approximations are deterministic, described by ordinary differential equations, and stochastic (diffusion), described by stochastic differential equations. The former yield approximations for the time dependent behavior, while the latter quantify the statistical deviations. The techniques consist of a combination of weak convergence and martingale methods. The proposed methods allow for the investigation of networks with service times having not only exponential but also general service time distributions. The transmission rates can be taken to depend on the buffer occupancies, which is important in congestion control applications. The importance of those approximations becomes clear given the non-existence of flexible analytical tools that can give estimates of queue lengths and other performance measures for such (non-product-form) networks. The approximate models, arising via certain limiting procedures, will be used to further study stability issues, settling times and rates of convergence to the steady state. The methods and estimates will be established mathematically and also validated numerically and by simulations.